A High-Performance Computing and Software Laboratory

This project is to build a High-Performance Computing and Software Laboratory in the Division of Mathematics, Computer Science, and Statistics at the University of Texas at San Antonio (UTSA). This facility will support a variety of educational and research projects investigating both the fundamental nature of high-performance computing and its application to problems of importance in software engineering. Through the supporting laboratory facilities and different upper-division classes, students will be given an understanding of high performance computing, training in use of appropriate machines, and an experimental environment in which to conduct research in high-performance computing. A variety of systems will be studied including vector and multiprocessor supercomputers, such as the CRAY Y-MP (computing time is provided by the University of Texas System), different MIMD multiprocessor systems, such as the Intel iPSC HyperCube, Sequent Symmetry (computer time is provided by the Center for Research on Parallel Computing at Rice University), the BBN GP1000 at UTSA, and high-performance workstations. The project will concentrate on three important areas: 1) solving numerical problems in scientific applications by using high- performance computing systems; 2) measuring and evaluating performance of scientific computing on high-performance computing systems; and 3) monitoring and visualizing the performance. The laboratory facilities will support courses and research in numerical computation, visualization, software development and will encourage interdisciplinary work between computer science students and students from other fields of science and engineering.